EAGER: Therapeutic Protein Separations via Surface Isoelectric Focusing (sIEF)

1548107
Michigan Technological University
Minerick

This one year EAGER will explore a new and potentially transformative approach to small volume protein separations called surface isoelectric focusing (sIEF). sIEF offers the potential for simpler, cheaper, quicker, and sensitive analysis by operating 100 times smaller than previous IEF techniques.

This research will expand knowledge in isoelectric focusing to separate and identify amphoteric molecules, e.g., proteins, at very high resolution, which is fundamental to medical diagnostics of proteopathy diseases involving protein abnormalities and pharmaceutical screening of therapeutic proteins. IEF in larger scale slab gels is resource, labor, and time intensive being replaced clinically by smaller volume, genomic and affinity approaches. Glycoengineering of therapeutic proteins has been shown to improve molecular stability, regulate physicochemical and pharmacological properties, and improve pharmacokinetics with better absorption, longer circulation times, and decreased clearance rates. This work could produce the knowledge necessary to lead to the beginning of an sIEF tool which could interface seamlessly with therapeutic protein libraries. The result would be rapid screening and valuable charge and isoelectric point information to aid with the development of therapeutic proteins.